Groebner Fans in Combinatorics, Representation Theory and Commutative Algebra: Theory and Computation

Abstract for award DMS-0401047 of Thomas:

Groebner basis theory is today a central theoretical and computational
tool in algebraic geometry and commutative algebra with applications
in myriad fields such as computer science, optimization, robotics,
statistics, and computer modeling. The Groebner fan of an ideal or
module is the decomposition of the space of weight vectors that induce
Groebner base, such that each cone in the fan indexes a distinct
Groebner basis. This project describes four problems from
combinatorics, optimization, representation theory and algebraic
geometry that revolve around Groebner fans. The first project
investigates the complexity, geometry and homological properties of
initial ideals of toric ideals. Answers to these questions have
implications in integer programming and on the computation of toric
Groebner bases which themselves have several applications. The next
examines the variation of weight vectors in Kalai's theory of
algebraic shifting for simplicial complexes. The third project
studies the polyhedral geometry of moduli of resentations of the McKay
quiver which (partially) resolve singularities that arise in
generalized McKay correspondence. The last goal is to develop a
software package for computing Groebner fans of arbitrary polynomial
ideals. Applications include the computation of tropical varieties and
the study of orbit closures and degenerations of representations of
finite dimensional algebras.

The proposed work will employ tools from combinatorics, discrete
geometry and optimization to solve problems from commutative algebra,
representation theory and algebraic geometry. All projects have a
strong computational component that aims at effective algorithms and
serves as a laboratory for uncovering new structure theorems. The
collaborations include three graduate students and three current or
recent postdocs.